RUI: A Survey of the Moss Dwelling Tardigrades of China

RUI: A SURVEY OF THE MOSS DWELLING TARDIGRADES OF CHINA
William R. Miller, Clark Beasley, and Marshall Crosby

Tardigrades or water bears are small moss dwelling animals that exhibit
cryptobiosis, the remarkable ability to withstand extreme heat, cold,
pressure and other severe environmental conditions. Generally less than 1 mm
in length, the slow moving tardigrade resembles a cute miniature bear or
caterpillar. They are found on every continent in the moisture trapped by
moss, lichen, soil, or marine sediments. Their cryptobiotic life stage has
been defined as the reversible suspension of metabolism and may last for
decades. While desiccated in cryptobiosis, tardigrades have been
experimentally subjected to temperatures between -272 C and +150 C, to 6000
atmospheres of pressure, to complete vacuum, to high radiation, to common
gases, and still they returned to an active life stage. These results
kindle both physiological and evolutionary speculation, including the
possible ability of the animal to be transported through space. Yet, the
ecological requirements and life cycles of tardigrades remain little known.
They are suspected of being carried around the world by the winds, but their
global distributional patterns are very incomplete. For example, only 47
out of 950+ described species of tardigrades have been reported as occurring
in China. By comparison over 500 species are known to occur upwind in
Europe. Although water bears are often abundant, their contribution to the
life web of the planet is still a mystery. This project will develop
undergraduate research teams at Chestnut Hill College, Philadelphia, PA, and
McMurry University, Abilene, TX. The teams will conduct a survey of the
tardigrades of China, and over four years, more than 20 student researchers
will collect, identify and publish in the project. First, the teams will
extract tardigrades from the 10,000 moss samples collected by the Missouri
Botanical Garden in their NSF-funded "Moss Flora of China" project. Second,
the teams will conduct an expedition to China in collaboration with a member
of the Chinese Academy of Sciences, and collect 2000 additional samples.
Finally, the teams will work at the Academy of Natural Sciences in
Philadelphia to build and document a voucher collection.

The teams will contribute to the understanding of global diversity by adding
possibly as many as 300 species of tardigrades to our knowledge of the
Chinese fauna. Our students will probably discover and describe many new
and endemic species. We will expand the understanding of the ecological
requirements of the animals and test several hypotheses relative to local,
regional, and global distributional and spatial patterns. The data will be
added to the new Tardigrade Reference Center web site for tardigrade
education and research. The ultimate product will be a data based, digital,
and printable catalogue to the Tardigrades of China, complete with
descriptions, images, identification keys, geo-referencing, and
bibliography. Such a reference resource will aid taxonomists, ecologists,
biogeographers, teachers, and students all over the world who will be able
to use tardigrades in assessment studies, education, experiments, and
discovery.